NSF Student Travel Grant for 2018 ACM SIGPLAN Conference on Systems, Programming, Languages and Applications: Software for Humanity (SPLASH)

The ACM SIGPLAN Conference on Systems, Programming, Languages and Applications: Software for Humanity (SPLASH) embraces all aspects of software construction and delivery to make it one of the premier conferences at the intersection of programming languages and software engineering. This grant provides travel funds to support student attendance to the conference. The support will focus on students who are attending the several mentoring events that have been planned at SPLASH. The grant will be used for US citizens/residents and other US-based students and will give priority to underrepresented groups, first-time attendees, and those in need of economic support.

There is intellectual merit in the technical exchange of information and research conversations/collaborations made possible by the conference, as well as advances in the field made possible by these interactions. The proposal also provides education, training and mentoring received by the participants. The international nature of this conference helps develop a globally-aware workforce of research and educators within the US and helps build the community of researchers in the field of Software Engineering.